Experimental Studies of Hyperthermal Molecular Ion-Surface Interactions

In this research project, supported in the Analytical and Surface Chemistry Program, detailed studies of the interaction of polyatomic ions with well characterized solid surfaces will be undertaken. An understanding of the molecular ion-surface collision event is important in the development of surface induced dissociation as a method for the mass spectrometric analysis of the structure of large molecules. The goal of the present work is to identify and quantify the various events which may occur when a molecular ion strikes a clean or adsorbate covered surface, including fragmentation, sticking, reaction, implantation, sputtering, and ion neutralization. %%% The structural analysis of large and complex molecules is often carried out using mass spectrometric methods. One of the most promising of these methods is the use of surface induced dissociation to enable structural analysis. This research project addresses the details of the molecule-surface collision which controls surface induced dissociation. A more complete understanding of this event will enable the widespread application of the surface induced dissociation approach to the analysis of complex, biologically relevant molecules.